SSC: Summer Science and Technology to Advance Research Skills (SSTARS)

SSC-9353241 San Diego State Univ. Fdn. San Diego, CA Park, Cynthia D. "Summer Science and Technology to Advance Research Skills (SSTARS) The Math/Science Regional Center at San Diego State University proposes a three-year Summer Science and Technology experience to Advance Research Skills (SSTARS) for 50 students entering 9th grade. The San Diego County schools which are located in the South Bay and Skyline areas include representation from each of the predominant ethnic/racial groups in those areas. The project consists of two closely related parts: a four-week summer residential program on the San Diego State University campus and an academic year follow-up for students selected in Spring 1993. The summer session offers entering 9th graders an experimental pre-geometry class and a geometry computer lab, as well as an interdisciplinary earth science course which integrates a workshops in career exploration and adolescent problems. A technical writing class using Hypercard allows students to document their findings in innovative and expressive ways. All students participate in a research project, as well as environmental field trips which supplement the courses. This includes a mentoring program in which university science faculty will work up to four hours weekly with small groups of students. Each succeeding project year (1994, 1995) will be a recapitulation of the 1993 project year described in detail on the pages which follow. Students graduating from SSTARS will be able to continue summer science study at any one of 15 specialized Upward Bound Math/Science Centers in Federal Region IX. ***